Collection of Data and Damage Information for Shear Wall Buildings

This is a SGER project to collect and to study the perishable earthquake and structural response/damage data due to the October 17, 1989 Loma Prieta earthquake. This project provides travel support for field investigation to collect perishable data for shear wall buildings. The data collection is focused on both damaged and undamaged buildings. The general and performance data collected will be made available to the general research community as a valuable information source for their future research.